CISE Research Instrumentation: Infrastructure for Research in Mobile Computing: Bandwith Conservation Schemes and Protocols

9876441
Mahgoub, Imadeldin O.
Hsu, Sam
Florida Atlantic University

Infrastructure for Research in Mobile Computing:
Bandwidth Conservation Schemes and Protocols

This research instrumentation enables research projects in:

- Implementation and Measurement of Delta Service in a Mobile File System Client Cache,
- Two-Layer Protocol Infrastructure for Wireless Local Area Network Applications, and
- Graduate Courses in Mobile Computing.

This award contributes to the support of a research facility at the Department of Computer Science and Engineering of Florida Atlantic University enabling experimental research in mobile computing. The experimental facility requested includes a wireless network consisting of one primary server, one backup server, and ten mobile clients. The research topics to be explored include bandwidth conservation schemes and wireless communications protocols. The following major research projects, among others, will benefit from the real-world mobile computing environment that will be provided by the proposed instrumentation: 1) Design, implementations, and evaluation of delta service extension to a mobile file system cache proposed to enhance bandwidth conservation by minimizing the amount of data transferred over wireless communications links. Bandwidth conservation is an important research direction, since network bandwidth stands as one of the resource limitations impacting the design of mobile computer applications; 2) Design, implementations, and evaluation of communication protocols for Ad Hoc Wireless Local Area Networks. Applications of such networks include mobile classroom, corporate meetings, press conferences, disaster avoidance and disaster recovery situations. Such networks will pave the way for enhanced communications capabilities in situations where the cost of having fixed wired networks is not justifiable.